Mathematical Sciences: Differential Operator Rings, Noetherian Rings, and Von Neumann Regular Rings

This project is concerned with research in ring theory. The principal investigator will continue investigating the structure of differential operator rings, Noetherian rings, von Neumann regular rings, and related rings. A ring is an algebraic object having an addition and a multiplication defined on it. Rings occur in a variety of settings in mathematics and physics. The specific research involves the structure and theory of von Neumann regular rings and rings of differential operators.